INTERNATIONAL CONGRESS TRAVEL Grant Project (ICME-8)

9553547 Becker The National Councit of Teachers of Mathematics is ooperating a travel grant program for the Eighth International Congress of Mathematics Education (ICME-8) being held in Seville, Spain from July 14 to July 21, 1996. The project provides approximately 40 travel grants to key US elementary, middle, high school teachers and supervisors, community college and college/university mathematics teachers, teacher educators and researchers to enable them to participate in the Congress.